Presidential Faculty Fellow: Marine Environmental Ecology

This fellowship will support significant expansion of and innovation in a research, teaching, and service program at Mount Holyoke College. The Fellow will synthesize teaching and research activities in three key areas, tropical marine ecology, a multidisciplinary program in environmental studies, and integration of computer technologies into existing biology and environmental studies curricula.